Statistical Thermodynamics of Polymer Blends and Alloys

The two objectives of this research are to develop a reliable combination of experiment and theory enabling the determination of both positive and negative polymer-polymer interaction parameters and to develop a better predictive model for polymer phase diagrams involving rigid rod polymers. In pursuing these objectives, this proposal covers the following related areas of theoretical and experimental polymer blend thermodynamics: Experimental determination of polymer-polymer interaction parameters by osmotic and vapor-pressure measurements on single- phase, ternary polymer-polymer-solvent systems. Experimental determination of the associated ternary phase diagrams and a rigorous comparison of these experimental ternary phase equilibria with equation of state theories. Development of an equation of state theory for mixtures of rigid-rod polymers with flexible chain polymers and solvent.